Program for Undergraduate Research in Ceramics

This is a Research Experiences for Undergraduates (REU) Site grant. The award permits undergraduate students to participate in a research program in the materials field under the supervision of faculty members actively engaged in research. The REU Site at the University of Arizona is designed to integrate undergraduate students into already active and stimulating research groups in Materials Science and Engineering. Recruiting for students places high emphasis upon hispanic and other minorities as well as females, and places additional emphasis on attracting students from the surrounding Community Colleges, such as Pima Community College. Funding provides for support of six students. The program begins with a five week summer instructional program at the University of Arizona Materials Laboratory, and then progresses into the academic year with more emphasis on research. Skills taught in the summer portion include laboratory safety, mixing chemicals, running characterization instrumentation, analysis of data, and report preparation. Students who show highest aptitude and desire will continue to pursue their research participation during the academic year with matching funding support from the University of Arizona. Students present their results in a seminar, and are encouraged to publish the results in the appropriate scientific literature. The topics selected for the research include laser processing of sol-gel coatings, structure of thin ceramic films, strengthening of inorganic glass by alkoxide coatings, and processing of glass-ceramics from lunar resources. The program enhances current research activities as well as adding to the number of scientifically trained individuals. It is hoped that this hands-on experience will serve as a stimulus to attract and retain highly-gifted students into careers in teaching and research.